RESEARCH - Reuniting Elements of the Science Education And Research Communities in Hawaii

This project enables 20 junior high and senior high teachers to participate in a research project with scientists or engineers. Teachers and research-mentors with similar interests will work together. For eight weeks in the summer of 1987 each teacher will review the literature, tools, and techniques needed to be involved in a research project. During the academic year of 1987-88 the teacher will continue the research project after school or on weekends. At least one meeting per month will be held with the mentor-scientists. A major focus during this period will be discussions of how the knowledge and skills learned can be incorporated into the teaching strategies of the classroom. For eight weeks during the summer of 1988 the teachers will again be in the laboratories of mentor-scientists. At the end of the second summer each participant will prepare a written report.